Use of Low Cost Proprientary Catalyst to Reduce NOx In the Presence of Ammonia

This research is founded upon the Phase I work which proved that small quantities of low cost proprietary catalysts were effective in achieving large NOx reduction. The major objectives of the Phase I research plan were met or exceeded, including proof of the catalytic activity of the materials to achieve 40% reductions of NOx in a laboratory reactor. A statistical experimental design was used to develop empirical rate coefficients. This proposal extends the Phase I work, proposing larger scale testing under commercially relevant catalyst loadings and operating conditions. Particle size, catalyst aging, and the effects of H2O, hydrocarbons, SOx, and other potential poisons will be investigated. Phase II extends the operating scope to low temperatures (320 F to 550 F), as the Phase I work implied that the catalysts are active at temperatures below 550 F (560 K). The catalysts are low cost, using materials endemic to the U.S., and represent U.S. technology. The successful concept has the potential to reduce NOx compliance and energy costs, resulting in economic benefits to the U.S. power industry.